Mathematical Sciences: Robust Multivariate: Algorithms, Methodology and Theory

Estimation of the mean vector and the covariance matrix for multivariate data is an extensive practice. The investigation is aimed at studying properties of estimators which are robust against contamination of long tailed distributions. The study will investigate the breakdown properties of M- and S-estimates,along with projection-based estimates. A study of the properties will determine their suitability in real life applications.